Avian Vocal Ontogeny

Scientists have discovered a number of parallels between speech development in humans and song development in birds. These parallels include learning early in life, and speaking two languages or singing two song types at dialect boundaries. White-crowned sparrows learn songs from adults in the population. Cultural tradition and isolation gives rise to regional dialects. In the laboratory, white-crowned sparrows will learn song from tape recorders before they are 50 days of age, but the stronger stimulus of a live, interacting tutor is necessary for song learning beyond that age. The present studies were designed to find out if young birds learn songs from neighbors after leaving their birthplace (at the age of 50 days) and settling, and if subordinate individuals tend to learn songs from dominant individuals. Dr. Baptista will also investigate whether or not nonmigratory individuals develop songs faster than migratory individuals, since sedentary birds establish territories at an earlier age and song has important functions in acquiring and maintaining a territory. Singing and territoriality are two of many behaviors birds need in order to survive. Knowledge of how birds interact with their physical and social environment is prerequisite to any intelligent management program to save our vanishing habitat and wildlife.